Mathematical Sciences: Computational Analysis for Time Dependent Wave Propagation Problems in Exterior Domains

The principal investigator will study the time-dependent propagation of waves past obstacles using a numerical scheme that incorporates approximate far-field boundary conditions derived asymptotically. A straightforward numerical solution of such problems is usually very difficult because the domain is unbounded. The research in this proposal should help to remove many of the difficulties associated with the boundary conditions at infinity. Many problems in nature involve the flow of liquids and gases past obstacles, think of your car or an airplane or a boat. One of the difficulties in finding solutions of such problems stems from the fact that the flow domain is infinite, and so one must replace the infinite problem with a problem on a finite domain. This is also tricky, but the present proposal contains a method for choosing the right finite domain on which to perform numerical calculations.